Upgrading UNCA's Unidata Facilities to Unix-based System

9303124 Heimbach This grant will allow an existing UNIDATA system at the University of North Carolina to expand the capability and accomodate anticipated UNIDATA products. The long term goals of this project are to implement a system compatible with the UNIDATA Internet data transmission being developed, to interface with the UNIDATA community, and to reduce the cost of data access. ***